Race and Public Policy in the American States

9412379 Saiz After developing a statistical model to test the empirical relationship between a measure of racial bias in voter turnout and quantitative indicators of state public policies, this Minority Research Initiation Planning Grant will afford the Principal Investigator the opportunity to develop a project on the consequences of minority participation in the political process. The investigator will look at the relationship between minority voting and policy responsiveness and will test hypotheses regarding rival explanations of public policy behavior.